Group Travel Grant for Faculty at Minority Institutions

The percentages of minority and women students choosing to study computer science at American colleges and universities is declining. This award will support faculty from colleges and universities with large minority and/or female student enrollments to attend the 2008 Software Engineering Educators’ Symposium (SEES’08), where they will learn about latest pedagogy and best practices in Software Engineering education and teaching techniques that appeal to diverse learners. to attend the 2008 SIGSOFT Conference on Foundations of Software Engineering (FSE’08), where they will learn of current Software Engineering research and of opportunities in research labs and academia and where they will network with top researchers in Software Engineering.